VLSI Architectures for Pattern Matching and Recognition

The goal of this research is the investigation, design and implementation of high performance VLSI architectures for two dimensional pattern matching and recognition. Although several hardware algorithms have been proposed in the literature for the one-dimensional pattern (string) matching problem and its variations, very little work has been done in the area of hardware algorithms for matching and recognition of two-dimensional patterns. Most of the research has been aimed at efficient software algorithms based on different features and matching strategies. Many pattern matching applications need real-time response, perform number of repetitive computations on different data sets, make use of regular and local operations, are modular, and have a fair amount of inherent parallelism. The design of special purpose hardware for pattern matching could speed up the task considerably, making it amenable for real-time applications. Specifically, the main objectives of this research are . Develop new and efficient hardware algorithms and VLSI chips for a class of pattern matching problems such as scene matching, approximate string matching, polygon matching and tree matching. . Design and develop an application specific system architecture for pattern matching and recognition through integration of the above mentioned VLSI components at board level.